Group Travel to the International Cartographic Association Meeting; Cologne, Germany; May 1993

Meetings of the International Cartographic Association are held every two years. More than 500 cartographers and scientists and practitioners from related disciplines convene at these meetings to learn the latest research results, to plan future collaborative research activities, to examine the latest equipment and techniques, and to meet other professionals who share their interests. This award provides $9,000 to enable nine U.S. cartographers to attend and participate in the next ICA meeting, which will be held in Cologne, Germany, in May 1993. Distribution of group- travel funds will be made by a subcommittee of the U.S. National Committee of the ICA. One-half of the funds awarded will be used to support participation at the ICA meeting of three younger scientists. Group-travel support through this award will enable more Americans to attend and participate in the 1993 ICA meeting. Their participation at this meeting will enable them to stay informed on new research results and to plan future activities. Because special emphasis is being given to the support of members of groups that have been underrepresented in past ICA activities, the quality and range of scientific activities facilitated by this meeting will be even greater.